Science and the Future: Integrating Molecular Biology into a Classical Curriculum

9451943 White Molecular biology is one of the fastest growing fields in modern biology. Recombinant DNA technology has provided revolutionary insight into a vast array of studies ranging from evolutionary biology to medicine. Understanding the concepts of molecular biology is a requisite for understanding current research in many disciplines of biology and biochemistry. It is also critical for an understanding of a variety of issues that will become more and more important for students growing up in a world increasingly affected by biotechnology. Courses at Southeastern Louisiana University include discussions of molecular aspects of genetics, cell biology, embryology, microbiology and biochemistry. Unfortunately practical experience in these subjects has been limited by lack of equipment. We propose establishing a teaching laboratory to provide students with opportunities to gain hands-on experience in molecular biology as relates to a variety of disciplines in biology and biochemistry. Students will gain experience with techniques such as isolation and analysis of nucleic acids and proteins, DNA sequencing, DNA fingerprinting and others. These techniques will be presented where appropriate in established lab courses including embryology, genetics, biochemistry, microbiology, and virology. Practical lab experience will reinforce concepts taught in the lecture portion of these courses. Exposure to theories and techniques of molecular biology offers an important advantage to students. This field has among the best prospects for employment in the biological sciences. Students with a practical knowledge of molecular biology will be at an advantage when applying for advanced degree programs or seeking jobs in industry.